Beam Intensity Improvement Program for the FN Tandem Accelerator

This grant to the University of Notre Dame provides funds for replacement of the tandem Van de Graaff accelerator voltage grading resistors. The new resistors will provide more linear voltage grading in the accelerator so that the acceleration tubes are subjected to more uniform electrostatic stress.